Acquisition of Isotope Tracer Instrumentation for the Romberg Tiburon Center

0216459
Dugdale
This Major Research Instrumentation award to San Francisco State University's Romberg Tiburon Center provides funds for acquisition of research instrumentation for isotope tracer research in coastal marine science and estuarine ecology. Instruments supported here include a stable isotope mass spectrometer with gas chromatograph interface, a high resolution scintillation counter, and an elemental analyzer and reduction furnace. The instruments will be used in a variety of projects, including ongoing studies of carbon and nitrogen fluxes in phytoplankton near Bodega Bay, CA, oceanic fixation of nitrogen by Trichodesmium, nitrogen dynamics of natural planktonic communities in response to iron enrichment, coupling of carbon and nitrogen cycles in coastal upwelling, and invasive species in the San Francisco Estuary. The instrumentation award is supported by the Division of Ocean Sciences at NSF. San Francisco State University will provide cost-share support from non-federal funds for a portion of total project costs.
***